Scientific Knowledge Environment Symposium

This symposium will bring together about thirty leading thinkers and policy makers in several related areas of cyberinfrastructure for science, including scientific collaboratories, grid computing, and e-science environments. The goal is to bring together international representatives of these movements and communities to better create mutual awareness and understanding and to accelerate research, development, and deployment of these new environments to support science. A related objective is to articulate both the technical and social/organizational prerequisites for success in these endeavors. This nascent movement has profound implications for science education, for education and research in the humanities and for the future of the entire higher education enterprise.